Phase II: Technician Support for Gas-Isotope Ratio Mass Spectrometer Laboratory

0217128
Chamberlain

This grant is for a technical support person for the stable isotope geochemistry laboratory in the Department of Geological and Environmental Sciences at Stanford University. The grant covers the costs of salary for two years. The stable isotope laboratory has Finnigan-MAT Delta plus XR and 252 mass spectrometers, and both are configured for continuous flow measurements and have on-line combustion devices for C, H, and N isotope analyses of organic matter and minerals. The Finnigan-MAT 252 also has UV and IR lasers and associated extraction lines for the analysis of O isotopes in silicate and oxide minerals. The technical support person will be responsible for: 1) assisting in construction of laser lines; 2) routine support and maintenance of the mass spectrometers; 3) training of students, postdoctoral fellows and faculty in the use of this laboratory; and 4) analysis of samples.
***